Purchase of a CCD Area Detector Diffractometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Michigan State University to acquire a CCD area detector diffractometer. This equipment will enhance research in a number of areas including the following: (1) extended metal arrays with paramagnetic centers, (2) electride structures and properties, (3) exploratory synthesis of metal chalcogenide compounds, (4) magneto-structural studies of layered vanadyl phosphates and phosphonates, and (5) reactions of transition metal anions with haloboranes. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.